Instrumentation and Laboratory Improvement

Shared computer resources among the departments of Biology, Chemistry, Computer Science, and Mathematics are providing students with an important simulated laboratory environment. Thirty-five computer workstations are being utilized in a teaching laboratory to provide students with hands-on experience which for reasons of cost, safety, or ethics cannot always be provided in traditional undergraduate laboratory settings. A science computing laboratory also provides students with opportunities for self-directed experimentation and learning. The shared resources enhance the curriculum of both science majors as well as introductory courses of non-science majors. This award is being matched by an equal sum from the grantee.